NUE: "We're Not in Kansas Anymore" - A Hands-On Introduction to the New World of Nanoscience and Technology

This Nanotechnology Undergraduate Education (NUE) award to the University of Virginia supports Dr. John C. Bean, Electrical and Computer Engineering Department, for his work on developing a new hands-on, lab-based, introduction to nanoscience and technology for freshman and sophomore students, entitled, "We're Not in Kansas Anymore"-A Hands-on Introducation to the New World of Nanoscience and Technology." This course will use breadth-first active learning methods that team members have employed successfully in previous introductory courses and in the development of the "UVA Virtual Lab" website.

The proposal for this award was received in response to the Nanoscale Science and Engineering Education program solicitation, NSF 05-543, Nanotechnology Undergraduate Education (NUE) component, and is being co-funded by the Division of Design, Manufacture and Industrial Innovation (DMII/ENG), the Division of Civil and Mechanical Systems (CMS/ENG) and the Division of Undergraduate Education (DUE) in the Directorate for Education and Human Resources (EHR).